Nonlinear Partial Differential Equations in Geometry and General Relativity

This proposal presents a broad array of projects within three distinct
areas of geometric analysis. The first area concerns the application of
nonlinear gluing techniques to the Cauchy problem in General Relativity.
Nonlinear gluing techniques have played a central role in geometric
analysis over the last 20 years. It is only recently that they have been
introduced as a useful tool in General Relativity. Applications have
included the existence of asymptotically flat vacuum spacetimes with
arbitrary spacial topology and those with no maximal slices. The PI will
extend and apply these powerful tools in a number of important ways. The
second set of projects studies the existence and behavior of smooth
Schr\"odinger maps. From a geometric point of view the Schr\"odinger flow
is the most natural dispersive equation as it arises as the Hamiltonian
flow of the Dirichlet energy for maps between manifolds. This work will
establish a bridge between the well-developed theory of dispersive
equations and important techniques from geometric analysis. The third area
is a continuation of the PI's work on surfaces of constant mean curvature
(CMC) in Euclidean 3-space. The local structure of the moduli space of
all such surfaces with a fixed topology was previously worked out by the
PI and his co-authors. The development and application of new gluing
techniques for CMC surfaces has led to important advances in our ability
to describe the global structure of these moduli spaces. The PI will
carry this work significantly forward so that we may begin to obtain a
more thorough understanding of these basic geometric objects.

General Relativity is the physical theory which forms the cornerstone to
our understanding of the large scale structure of the Universe, and has
been intimately intertwined with differential geometry and partial
differential equations since its inception at the beginning of the 20th
century. As with any physical theory, its dynamical formulation (the
Cauchy problem) is of central concern. The PI's research on the Cauchy
problem will develop and apply new analytic techniques to General
Relativity. The resolution of these problems will bring us further in the
long term goal of understanding how to model physical phenomena via the
mathematics of the initial data sets. Analytically, the Schroedinger flow
is a generalization of the classical nonlinear Schroedinger equation,
which has been intensively studied. The proposed program concerning the
Schroedinger flow will foster the development of a new area of geometric
dispersive systems. Surfaces of constant mean curvature arise naturally
as the surfaces which locally minimize their surface area while
maintaining a fixed enclosed volume. Soap bubbles form a familiar and
important class of examples of surfaces of constant mean curvature. The
significance of these research projects lies both in the importance of the
particular results which the PI will obtain and also in the continual
development of sophisticated techniques which enable one to approach and
understand problems which exhibit increasingly complex phenomena. Much of
this research is interdisciplinary both between distinct areas within
Mathematics and between Mathematics and Physics. While important results
have already been obtained, there is great potential for expansion in
these areas.